Development and Use of a Mixed-Lubrication Laboratory for University-Industry Collaboration and Education

9501877 Chang A CAREER award will support development of research and instruction in mixed-film lubrication theory and experimentation. The project will establish a strong industry connection and will endeavour to provide fundamental solutions to generic industrial problems in this branch of tribology. ***